SBIR PHASE II: A Wideband Wireless Network for Transactions, Files and Digital Voice

*** 9704008 Abramson This Small Business Innovation Research Phase 11 project involves the design and construction of a packet radio network based upon a broadband connection free protocol for integration of transaction, file and digital voice in a common channel. Multiple access protocols are used to permit independent transmitters to share a common communication channel. When the number of transmitters is large and the network is required to support a variety of different kinds of traffic a connection free multiple access protocol is often required. Spread ALOHA Multiple Access (SAMA) is such a protocol, combining the proven simplicity and operational flexibility of an ALOHA multiple access channel with the high bandwidth and high throughput of a spread spectrum channel. In this Phase 11 project we plan to modify an existing SAMA packet radio network to implement a new efficient protocol for the seamless integration of a wide variety of traffic types in a common channel This new wideband version of SAMA will have commercial applications in PCS networks which must integrate data into a voice oriented architecture and in VSAT networks which must integrate voice into a data oriented architecture. ***